An Investigation of the Effects of Creep on Structure and Magnetic Properties of Nickel Through Simulated Cavitation in a Model Material

9310273 Jiles The primary objective of this research is to make a quantitative examination of the relationships between microstructural parameters of a model metal material and global magnetic property changes. The metal is pure nickel, selected to avoid the complications of microstructural changes, such as hard second phases, that could complicate the analysis. Cathodic charging is employed to form hydrides at grain boundaries in the nickel and induce microcavities. Creep damage in nickel is assessed in terms of cavity number density and average size of cavities and compared to the bulk magnetic properties, coercivity and permeability. %%% This investigation could have technological impact in areas where high temperature creep damage is a potential problem, such as in steel components operating in power plants. ***